Scientific Computing Research Environments for the Mathematical Sciences (SCREMS)

The Department of Statistics at the University of Connecticut
will purchase a Compaq Professional XP1000 EV6 667MHz UNIX
systems, ten DELL 1.70GHz dual processors power workstations,
and an HP Color LaserJet printer, which will be dedicated to
the support of research in mathematical statistics, statistical
methodology, statistical computing, complex statistical modeling,
and statistical software development. The equipment will be
used for several research projects, including, Bayesian analysis
of multivariate categorical data and missing covariate data,
methodology for analyzing spatial data, statistical inferences
for contingency tables, cDNA microarrays, the American travel
survey, statistical analyses for infinite variance stable
processes, multivariate survival data and highway accidents
data, and wavelet modeling of high-frequency data.

Additionally, the machines will greatly enhance departmental
research and education infrastructure at all levels. They will
be made available to all departmental faculty, graduate students